Our Place: Creating a Community Comfort Zone for Science Learning

9552560 Valenta The California Museum of Science and Industry requests $1,103,410 over three years to work in a partnership with the National Council of La Raza to develop two content-rich "discovery rooms" in the Museum that are supportive of further learning in the larger museum context and that guide parents from culturally diverse backgrounds in supporting their children's science learning at the museum and in the home. A major component of the project is the "Our Place Academy," a comprehensive education program that will train Latino parents of preschool and school-age children to serve as learning facilitators in the discovery rooms. The curriculum of the Academy will focus on skills that will both serve Latino parents as partners in their children's science education and as leaders and disseminators within their own communities. A training guide entitled, "Making it our Place" will be developed as a practical guide for building a trained staff from the parents in a community to facilitate learning in a discovery setting. Target audience is parents with preschool and school-aged children.